SoD-TEAM: Problem-Solving Methodology in Collaborative Design

Directorate for Computer and Information Science and Engineering (CISE)
Division Computer and Network Systems (CNS)
Science of Design (SoD) Program

Proposal Number: 0613550
P/I: Steven Tanimoto
PI's Department: Computer Science and Engineering
Institution: University of Washington
Award: $ 449,642

Title: "SoD-TEAM: Problem-Solving Methodology in Collaborative Design"

This project focuses on software tools that facilitate collaboration among members of a design team. The project permits a design team to manage the explored portions of a space of alternative designs. In addition, it supports evaluation and communication among team members about design alternatives. One goal of the project is to develop a methodology and a framework for software-designers that is based on studies that will lead to understanding how to support end-user exploration of solution-spaces. In addition the project facilitates collaboration among designers with different interests, expertise and the need to have both private as well as share common group-based designs. The theory of problem solving that forms the basis of the project involves "state-space search." The state-space search methodology applies to both formal problem solving (where automation without human intervention is possible) and to complex design problems in which some aspects can be "fuzzy". However, the approach proposed with this project is to merge the two genres of software and create a new one: software that allows a collaboration among automatic design processes and human designers, and one that makes visible not only the details of particular designs but also a substantial piece of the space of possible designs. In support of this project, the proposers developed the core of an initial research prototype software system to support design with transparent display of design spaces. This system, T-Star, implements a human interface that supports problem-solving using an approach from artificial intelligence that includes a view of the portion of the solution space that has been explored so far. Having a visual rendition of the spatial context of exploration helps ground design team collaboration.

Program Manager: Anita J. La Salle
Date: June 26, 2006